Mathematical Sciences: Differential Geometry, Partial Differential Equations and Several Complex Variables

The principal investigators will study problems in complex differential geometry and spectral geometry. Professor Greene will attempt to find biholomorphic invariants which can be used to classify domains with noncompact automorphism group. Professor Petersen will study the relationship between the topology and geometry of a manifold and the spectrum of the Laplace operator. The post doctoral associate supported by this award, S. Zhu, will study the relationship between topology and Ricci curvature. This award will support work in differential geometry which tries to relate global topological information to local analytic information. The local information generally is presented in the form of an invariant of a differential equation or system of equations. The information is then used to classify the domain or to obtain restrictions on the global "shape" of the set under consideration.